Improvement of Lower Level Biology and Chemistry Courses by the Addition of Computer Assisted Spectrophotometers to the Laboratory Curriculum

The objective of this project is to improve the laboratory curriculum in lower-level biology and chemistry courses by introducing computer-assisted spectrophotometers into the laboratories. The courses affected by this project serve mainly non-science-majors, many of whom eventually major in education. The ease of use and speed of the computer-assisted spectrophotometers allow their introduction into the larger, lower-level classes, while the number of variables that can be investigated with this equipment opens up the possibility of doing more complex laboratory experiments. Exposure of non-science-majors, especially those entering the teaching workforce, to computer-assisted technology can make them feel more comfortable with the science and the technology of this field. This can only improve their attitude toward science and the impression they give to their future students.